An Overview of U.S. Engineering Research

The objectives of this study are to describe the scope and character of engineering research and establish its significance to the nation's goals, and to determine the role that engineering research is playing in advancing the nation's productivity and maintaining its international competitiveness. Issues that determine the health of the engineering disciplines, particularly in academia, are identified. The study also identifies and highlights especially active or emerging areas of engineering research that need early attention in achieving national goals and international competitiveness. The project determines if difficulties exist with the methods by which engineering research is sponsored and stimulated, and determines incentives and procedures for attracting the best young minds to graduate schools of engineering research. Policy issues that need to be addressed regarding the conduct of the Federal Government's activities in support of engineering research are identified by examining the engineering research activities of concerned Federal Government agencies (NSF, ONR, AFOSR, ARO, DOE, NASA, DARPA, etc.). Methods that can be used to alleviate perceived problems are defined.